DoStat.com: A Web Site for Educational Data Analysis and Assessment

Mathematical Sciences (21)

The project is developing a web-based assessment tool around WebStat statistical software. The resulting web site, DoStat.com, allows instructors to easily develop data analysis exercises and administer the resulting assessments to their students. The student takes the assessment in a format that seamlessly integrates the data set to be analyzed with the software to analyze it. The project is effectively solving the problems associated with delivering important data analysis exercises to introductory statistics students.